Postdoctoral Fellowship: MSPRF: Towards Optimal Learning under Distribution Shift: New Algorithms, Optimality Guarantees, and Fundamental Limits

This award is made as part of the FY 2025 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Reese Pathak is “Towards Optimal Learning under Distribution Shift: New Algorithms, Optimality Guarantees, and Fundamental Limits”. The host institution for the fellowship is the University of California - Berkeley and the sponsoring scientist is Nikita Zhivotovskiy.